The Study of Quantum Confinement Effects for Optical Beam Modulation

This award funds a collaboration between Northeastern University and the University of Lowell and focuses on a Spectra Physics Ring Dye Laser (actively stabilized model 380D) owned by Northeastern but currently installed in the research optics laboratory at the University of Lowell. It is pumped by a new Lexel 5W Argon ion laser provided by the University of Lowell. This tunable laser source provides a key probe in the study of the quantum confinement effects for optical beam modulation. The objectives of the research are centered around the investigations of particle distribution, nonlinear refractive indices, estimation of response times, and beam amplitude noise. The primary activity will be the study of a specific type of non- linear optical medium that can exhibit large optical non- linearities with short response times. A strongly non-linear material allows relatively weak optical fields to be used for writing structures that can diffract or modulate optical beams. The optical device envisioned ultimately will consist of an array of sets or clusters of 'quantum dots'. In the initial stages of this program, materials such as colloidal suspensions of (40 Angstrom) gold particles, are readily available and will be used to study quantum confinement effects. A data base will be developed on the optical properties of this particle suspension as a function of incident power and wavelength; response times and the bulk optical nonlinearity of the medium as a function of particle concentration, and where possible, particle size will be measured. The principal investigators are qualified to conduct this research and a grant of $25,000 for one year is recommended.